An Experimental Research Facility for Parallel Computing

The advanced Computing Laboratory in the Computer Science Department at the University of Tennessee has access to a number of new architecture high performance computers. This award is to upgrade the facility by the addition of a mixed mode Single Instruction Multiple Data (SIMD)/Multiple Instruction Multiple Data (MIMD) computer, increasing the number of processors in a shared memory MIMD computer, and providing partial support for a technician. The research supported by these computers include the design and development of portable, efficient numerical linear algebra algorithms; the development of non-numeric algorithms for parallel architectures; the development of parallel algorithms for genome sequencing; and the development of parallel discrete optimization algorithms using the genetic algorithm method.